Administration of the Evaluation Process for NSF Postdoctoral Fellowships in the Mathematical Sciences

This project consists of all aspects of the annual evaluation of applications submitted to the Mathematical Sciences Postdoctoral Research Fellowships program of the Division of Mathematical Sciences at NSF. The
major steps of the evaluation process include the collection of applications materials during September and October, the processing and distribution of the application materials for review by a panel of 15 senior mathematical scientist, the arranging of a face-to-face meeting of the full panel in early December to evaluate the applications, and the reporting of the results of that evaluation to NSF before the end of December. Members of the panel are appointed by the presidents of the American Mathematical Society (AMS), the Institute of Mathematical Sciences and the Society of Industrial and Applied Mathematics.

This project is funded as a cooperative agreement between the NSF and the AMS for the period from 2001 through 2005.